PRECISION MEASUREMENT OF STELLAR SIZES AND CIRCUMSTELLAR MATERIAL WITH 10 MICRON INTERFEROMETRY AND NARROW FREQUENCY BANDWIDTHS

ABSTRACT
The Berkeley Infrared Spatial Interferometer is a unique system of three 1.65-meter
telescopes located at the Mt. Wilson Observatory. Its baselines range from 4 to
approximately 75 meters and it is capable of 20 milliarcsecond resolution. The system
uses heterodyne detection with a bandwidth of 0.2/cm and the resulting signals can be
filters to obtain arbitrarily narrow spectral widths. The recent addition of a third telescope
has allowed phase closure measurements to an accuracy of 1 degree, which allows nearly
complete Fourier analysis of intensity patterns, including asymmetries.
An observing program of evolved late-type stars will be continued using the
interferometer. The sizes of such stars and select associated features (surrounding dust
distributions and asymmetries, water vapor envelopes, etc.) will be directly measured.
The narrow bandwidth capability will allow the atomic and molecular spectral lines of
surrounding gas to be avoided or selected yielding, among other characteristics, reliable
and realistic stellar sizes. The observations will follow the changes in size of prominent
Mira variable stars as a function of phase and examine possible departures from
sphericity of Miras and red giants. Previous studies with the interferometer have shown
movements of dust clouds surrounding late-type stars as well as deviations of the clouds
from spherical symmetry. Studies of these variations will be continued to provide
information on the motion of dust clouds around stars, and from this and Doppler
measurements, also a determination of distances.
The work here will provide training for young scientists (a postdoctoral research
associate) and students (2 graduate students as well as undergraduates) who will have
hands-on opportunities to learn optics, electronics, computer control systems, data
analysis, and scientific interpretation. Interferometry and instrumentation are two areas of
high priority for the astronomical community and the education of the next generation of
instrument builders is critical the field's continued success.